Collaborative Research: Development, Testing and Implementation of Digital Imaging Techniques for Enhanced Learning Applications in HD, 3D and Dome Theater Immersive Environments

This is a collaborative planning project led by PIs at the Advanced Imaging and Visualization Laboratory of the Woods Hole Oceanographic Institution (WHOI) and the Science Museum of Minnesota (SMM). The work will develop and test several new technical methods both of acquiring underwater and terrestrial scientific image material by WHOI staff and of applying it to the needs of the research community and of digital projection theaters in the informal education world, specifically to HD, 3D, and digital planetarium environments. The planning efforts are intended to feed into the eventual production of shows by SMM and by the new Minnesota Planetarium, and then to similar theaters around the country.